CAREER: machine learning approches for articulatory inversion

Articulatory inversion is the problem of recovering the sequence of
vocal tract shapes that produce a given acoustic utterance.
Articulatory representations are useful for automatic speech
recognition, speech production research, language therapy, and
language learning. Articulatory inversion is a hard problem because
different vocal tract shapes can produce the same acoustics, yet the
articulatory trajectory must obey the mechanical constraints of the
human vocal tract. Other examples of inversion problems over a
sequence, which share the multivalued nature of the mappings and the
existence of constraints, are: the recovery of facial gestures
associated with a speech utterance; the inverse kinematics of a robot
arm; and the recovery of 3D motion from video.

This project approaches articulatory inversion from a machine learning
standpoint, based on a framework introduced by the PI. The
low-dimensional manifold in articulatory-acoustic space is represented
in a probabilistic way by a density model estimated from data
(recorded using a microphone and electromagnetic articulography).
Multivalued mappings are explicitly represented by the modes of
conditional distributions of this density, and the articulatory
trajectory is disambiguated using a continuity constraint.

The project introduces new problems in dimensionality reduction,
density estimation and regularization (such as multivalued regression
and graph-learning from noisy data), and new models and algorithms.
The expected results of this work are: performing basic research in
machine learning, and introducing mapping inversion problems to
research and education; improving articulatory inversion (for which
code will be made freely available); and advocating data-driven
approaches in speech production research and education.